Tenth International Spores Conference, Woods Hole, Massachusetts, March 23-27, 1988

The 10th International Spores Conference will be held at the Marine Biological Laboratories, Woods Hole, Massachusetts, from March 23 through March 27, l988. The Conference will bring scientists from all over the world, both from academic and industrial laboratories, who are interested in prokaryotic development and differentiation. The primary emphasis of the Conference will be on bacterial sporulation, but at least one session will be devoted to problems of development and global regulation in other mocroorganisms. The Conference will focus on the regulation of gene expression during sporulation, including the initiation of the process, the physiology of spores germination, structural and functional studies of spores, including mechanisms of spore resistance, and one session will deal with sporulation related products of industrial importance, including insecticides and exoenzymes. The formal program of nine sessions will be supplemented by poster sessions and informal round table discussions on specific topics.